The Effect of Regional Hydrologic and Hydraulic Parameters on Macrodispersion in Heterogeneous Aquifers

This is an award to provide support for research on modeling of the movement of groundwater pollutants from their source to a location of interest. This project is a renewal of support for research, conducted under NSF Grant No. 89- 21004, in which the investigator focussed on fundamental methodology for modeling groundwater flow and solutes that are derived from non- point sources. In this renewal project, the investigator plans on improvement of the model and conducting field experiments to verify its predictive ability for movement of pollutants in groundwater aquifers. This project is expected to improve our fundamental understanding of the effect that regional hydrological characteristics and aquifer parameters have on the rate at which pollutants move in aquifers. The investigator plans on relating the dispersion parameters of the developed models to easily measurable variables such as the rate of aquifer recharge, the hydraulic gradient, transmissivity, aquifer thickness and laboratory-scale determined in laboratory-scale dispersivity. Results are expected to be utilized in forecasting of scale-dependent factors influencing groundwater pollution, and in the design and test of hazardous waste containment facilities and in implementation of remedial actions for decontamination of soil and aquifers.